Engineering Creeativity Award: Computer Model of ElectricalActivity of Nervous Control and Neuromuscular Interactions

The objective is to create a computer model of the electrical activity, both nervous control and neuromusculor interactions, of the lower urinary tract, especially the bladder and the urethra. The research begins by obtaining or building a physical model of the bladder, urethra, and their neural innervations, perhaps two: male and female. The model is to have the ability to reproduce some electrical activity of the system, the neuromuscular interactions and the physical muscular activity. It is planned to develop the model for a popular personal computer. The model is to be able to simulate the detrusor muscle's response to stimulation through a graphical depiction of it. The program plans to take into account pharmacological considerations. It is also to be gender-specific. This project is one supported under the Creativity Awards for Undergraduate Engineering Students.